Robotic Plan Formulation as the Design of Behavior (Computer and Information Science)

Plan Formulation can be regarded as the Design of Behavior: this view of the process leads naturally to an integration of the emerging technology of intelligent design support systems with the formulation of plans for the manufacture of artefacts so designed. This project is aimed at investigating this approach using the Edinburgh Designer System as a basis on which to build an experimental plan formulation and execution system for assembly. Following Barrow's work on VLSI design, designs are specified in terms on modules, with a formalism for defining action modules whose genesis will lie in the need to create certain interface modules in the design (e.g. the seating of a bearing on a shaft) and whose realisation will be as action schemas in the robot control system under development. An action module can be regarded as achieving an assembly goal or goals and goal interactions, which may arise from spatial-resource contention and kinestraints, with an appropriate inference capability being implemented. The exploitation of symmetry in this area will be studied and computationally tractable means of representing and manipulation the relevant group-theoretical entities will be developed.